Symmetry and Mechanics: Geometric Integration Techniques and Bifurcations of Relative Critical Points

Mathematical Sciences: Symmetry and Mechanics: Geometric
Integration
Techniques and Bifurcations of Relative Critical Points

DMS-0104292
Lewis

The project consists of three main components: geometric
integration using Lie group methods, numerical
integration of conservative systems, and bifurcation
theory of relative critical points. The first component
involves the design of efficient, stable geometric
integration schemes on Lie groups and homogeneous
manifolds. The primary goals are minimization of
computational costs with accurate capture of key features
and facilitation of the adaptation of existing numerical
codes to geometric schemes. The second component
addresses the role of approximate or exact preservation
of conserved quantities or structures in the numerical
integration of conservative systems. Comparisons of the
symplectic, energy, and momentum errors to overall
algorithm performance, including accuracy of capture of
such key features of the underlying system as (relative)
equilibria and separatrices, will be carried out for a
variety of algorithms, including variational algorithms.
The third component addresses the variational
characterization of relative equilibria, that is, steady
motions, as critical points of appropriate functionals.
The notion of a relative critical point unifies and
generalizes the two most widely used characterizations;
this generalization will facilitate the extension of
existing bifurcation and stability results to a wide
range of finite and infinite dimensional systems and will
provide insights into the geometric structure of sets of
relative equilibria.

Specific applications of geometric integration methods
include the Landau--Lifschitz--Ginzburg (LLG) equations
for a micromagnetic field and various mathematical models
of muscular hydrostats. The LLG equations model systems
such as read/write heads on disk drives, nanocrystralline
magnets, and magnetohydrodynamic materials; efficient,
accurate numerical algorithms are needed to carry out
simulations on the spatial and temporal scales relevant
to industrial applications. Muscular hydrostats are
structural components of many biological systems,
including many kinds of worms, reptile and amphibian
tongues, and sea anemones; plausible mathematical models
of these systems are needed to test theories of the
evolution of such systems. Conservative systems arise
throughout physics and mechanics, playing a crucial role
in both industrial and theoretical research. Numerical
simulations that respect the conservation laws of such
systems have been shown to be crucial in several fields,
including astrophysics. The bifurcation analyses will be
applied to problems in fluid mechanics, elasticity, and
stellar dynamics.